A Program to Maximize Learning from Destructive Earthquakes

This award is for the continuation of the Earthquake Engineering Research Institute's (EERI) Program to Maximize Learning from Destructive Earthquakes (LFE). Conduct of immediate post-earthquake investigations has improved technical knowledge of earthquake effects and has provided significant new information leading to improved building practices, thereby contributing to the reduction of earthquake losses. The scope of the EERI Learning from Earthquakes Program will continue to involve three principal activities: l) Conducting post-earthquake field investigations; 2) Providing a clearinghouse for post-earthquake field investigations; and 3) Disseminating the lessons learned through public briefings and special reports. EERI will obtain increasingly focused information about the effects of earthquakes on the built environment and the concomitant ramifications in the societal arena; document findings from those investigations; improve procedures and guidelines for conducting future investigations; and broaden the dissemination of lessons learned to researchers, practicing engineers, and others concerned about reducing future earthquake losses.